Engineering Research Equipment Grant: Automation of a Flow Calorimeter

This project is an award for engineering research equipment, namely, equipment to automate a flow calorimeter. PROJECT: Intermolecular hydrogen bonds (H-bonds) represent a form of molecular attraction intermediate in strength between the physical van der Waal's forces and a true chemical bonding. When they occur, H-bonds have a dramatic effect on the fluid's thermophysical properties, and thus a thorough study of this phenomenon is extremely important from both a scientific and an engineering perspective. The research being conducted at Colorado School of Mines is a systematic study of bonding in an important class of materials; the five-membered heterocyclic ring compounds composed of both aromatic (furan, thiophene, pyrrole) and nonaromatic (tetrahydrofuran, tetrahydrothiophene, and pyrollidine) species. Both equilibrium association constants (K) and bonding energies (WHO) are being determined by measuring the heat effects that occur when a dilute solution of an associating species in an inert solvent is taken to infinite dilution in a flow calorimeter. Automation of the calorimeter facility will increase research productivity by at least 50 percent. PRACTICAL SIGNIFICANCE: The experimental results of this and future investigations of other more complex heterocyclic groups will substantially increase our understanding of H-bonding effects in aromatic and nonaromatic compounds, as well as add to the data base necessary for developing improved thermodynamic models for process calculations.